U.S.-Japan Seminar: Stochastic Analysis on Infinite Dimensional Spaces/January 1994/Baton Rouge, LA

This award supports the participation of 15 U.S. scientists in a U.S.-Japan Seminar on Stochastic Analysis on Infinite Dimensional Spaces, to be held January 4-8, 1994 in Baton Rouge, Louisiana. The co-organizers are Professor Hui Hsiung Kuo, Louisiana State University, and Professor Hiroshi Kunita, Kyushu University, Fukuoka, Japan. The objective of the seminar is to exchange information on stochastic analysis related to Lie groups, stochastic partial differential equations, stochastic flows and analysis on Wiener functionals, large deviation, white noise calculus, and stable laws. Both the United States and Japan have leading scientific researchers in the field of stochastic analysis on infinite dimensional spaces. The field has been growing rapidly during the last two decades because of its diversified applications and mathematical theory. The time is right for researchers from both countries to have in-depth discussions on the state of the art in this field.